Multi-User Shared Phosphorimager with Chemifluorescence Capability

The purpose of this application is to acquire a phosphorimager with chemifluorescence capabilities for the use of seven major users and several secondary users. The University of Tennessee, Memphis is committed toward the acquisition of this instrument. However, because the desired system is expensive, the University cannot provide total funding for the equipment. Therefore, the request to the NSF represents 67.66% of the costs that we will incur; the University of Tennessee, Memphis will provide the remainder 32.33% of the costs for the system. A number of investigators in the Departments of Pharmacology, Physiology & Biophysics, and Biochemistry at our Institution are employing a variety of molecular biological techniques for the performance of their research. These techniques range from detection of phosphorylated proteins to Northern, Southern, and Western analyses, as well as in-situ hybridization. Presently, a number of the users in this proposal use autoradiography for detection of radioisotopes in their phosphorylation, Northern, Southern, and DNA sequencing protocols. For Western analyses the investigators rely heavily upon the chemiluminescence detection assay which also requires the use of X- ray film. Although these procedures involving use of X-ray film are adequate for detection, the low linear range of the film severely, limits quantification of the differences that one observes. The problem of quantifying data from X-ray film exposed to radioisotopes or chemiluminescence is further compounded by the fact that the film has to be subjected to densitometric analyses. Thus, depending upon the quality of the image on the X-ray film and the capabilities of the densitometer, in the final analyses, the data may at best be semi-quantitative. The StormTM system that we have requested has the capability of detecting radioisotopes as well as chemifluorescence signals. The system uses the phosphor storage technology and provide s a larger linear range as compared to the X-ray film. In addition, the system provides direct quantification of signals and therefore, the need for a separate densitometer is circumvented. These features coupled with the versatility of the Imagequant software which permits the quantification of irregular shapes (e.g. ellipses) as would be seen in phospho-peptide mapping provides a rapid, exquisitely sensitive, and quantitative method for analyses of radioisotopes and chemifluoresence. One of the added advantages of the StormTM system that we envisage is that because of its ability to detect chemifluorescence, several investigators will be able to switch to non-radioactive detection methods for their protocols. This would be highly desirable since some of our experimental protocols, by decreasing the generation of hazardous radioactive waste, will become more environment-friendly. Moreover, the direct fluorescence capabilities of the StormTM system will also allow us to switch over to certain procedures not involving mutagenic, hazardous chemicals such as ethidium bromide to detect DNA. The availability of the StormTM instrument will not only expedite the progress of the research of several investigators as elaborated upon in the proposal but also facilitate the interpretation of their data. Preliminary data are provided to demonstrate the sensitivity of the system that is proposed over conventional X-ray film technology. In addition to using the StormTM system for research, we also intend to use the equipment for educational purposes involving graduate students, postdoctoral fellows and high school as well as college students from the Mid- South area who participate in a variety of programs at our Institution.